Hosting and Operation of the University-National Oceanographic Laboratory System (UNOLS) Office

The University-National Oceanographic Laboratory System (UNOLS), an association of academic institutions, was established in 1971 as a coordinating and planning mechanism for oceanographic facilities operated by those institutions. The UNOLS Office is the focal point for planning, coordination, and reporting of all UNOLS activities. It provides administrative staff services, prepares and disseminates ship schedules, user requirements, analyses of annual ship use, committee reports, new marine regulations and other related information. Support for special studies and activities, the medical advisory service for ship's crews and scientists, travel expenses by UNOLS Advisory Council members, committees, and consultants is also provided through the UNOLS Office. This project will conduct the activities of the UNOLS Office during the first year of a three year commitment to UNOLS Office operations by five Federal agencies. These agencies include: The National Science Foundation (Division of Ocean Sciences and Division of Polar Programs), The Department of the Navy (Office of Naval Research), The U.S. Department of Energy, The National Oceanic and Atmospheric Administration, and The U.S Department of the Interior (U.S Geological Survey and Minerals Management Service). The UNOLS Office is located at the University of Washington's School of Oceanography. This project is under the direction of Captain William D. Barbee, Executive Secretary, UNOLS.